Light Cone Quantization Conference; Dallas, Texas; May 26-29, 1992

This award supports participation at the Light Cone Quantization Conference, Dallas, Texas May 26-29, 1992. This conference will focus on a procedure of quantizing field theories that may be a great practical value in relating the nuclear force to the underlying QCD field theory.